Mathematical Sciences: Midwest Geometry Conference

Branson 9320882 This award supports a geometry research conference to be held in April 1994 at the University of Iowa. The conference is designed to enhance communication, cooperation, and collaborative research among differential geometers in the Midwest, to disseminate important recent research developments, and to introduce advanced graduate students and postdoctoral researchers to important topics in geometry research. Topics to be presented include Einstein metrics and their moduli spaces, existence and geometric properties of certain Riemannian functionals arising in scalar curvature, the relationship between symplectic geometry to spectral asymptotics, and applications of geometric methods to mathematics physics. ***